Development of Laser Interferometer Gravity-Wave Detectors, and Related Investigations in Experimental Gravity and Gravitational Radiation

The principal investigator will continue his research to investigate new techniques to improve the sensitivity of gravitational wave detectors. The thrust of the effort is to explore isolation systems with low frequency performance superior to those currently in use. These developments have application in the NSF supported Laser Interferometer Gravitational- Wave Observatory.

Three areas will be pursued: the magnetic levitation of test masses, the suspension point interferometer, and the use of paramagnetic materials for test masses. These developments may be expected to mature five to ten years from now and could have important applications in future versions of LIGO.